Seismic Structural Damage, Reliability, and Design

This project is to develop additional concepts and methods, as well as extend existing concepts, for quantitative assessment of seismic structural damage and reliability, and implementation of damage-limiting aseismic design. The specific components of the program are as follows: to develop quantitative models for defining seismic damage of structures, to define damage-related ground motion intensity, and to develop criteria and suggest associated procedures for designing damage-limiting earthquake-resistant structures within the framework of reliability. The research is expanded on the noval damage model already developed based on the established damage tolerance levels and a newly defined damage index. Further improvement is necessary to cover various material types and structural systems. The results would lead to major improvements in seismic design and provde a means to maintain adequate safety at acceptable costs.